CAREER: Towards Practical Systems for Trustworthy Cloud Computing

An increasing number of individuals, enterprises, and governments
migrate their data and applications to the cloud. Computations delegated
to the cloud may return erroneous results, outsourced files may be lost
or discarded, and sensitive information may be arbitrarily accessed for
advertising purposes. This project enhances the ability of cloud companies
to integrate advanced protection mechanisms into their products, benefiting
the online safety of cloud clients. The project also aims to improve security
education via new undergraduate and graduate curriculum and outreach to high school
students.

This project addresses foundational problems on the security, availability, and
privacy of cloud computing by using an application-driven approach and demonstrates
the broad applicability of this theory in practice. The project develops low bandwidth and
sub-linear computation protocols for securely recovering correct data blocks and computation
results. The researchers investigate practical and expressive privacy preserving algorithms
with reduced leakage profiles and low I/O complexity for advanced queries on encrypted
static and dynamic data. They also develop new fundamental techniques for verifying
frequently recurrent classes of delegated computations